Data Acquisition for the Physiology Laboratory and for Student Research in Neurobiology

Steven B. Ryan DUE 9552214 Xavier University FY1995 $ 15,790 Cincinnati, OH 452071035 ILI - Instrumentation Project: Life Sciences Title: Data Acquisition for the Physiology Laboratory and for Student Research in Neurobiology Data acquisition stations, consisting of a force transducer, a computer-controlled preamplifier and transducer bridge, an analog-to-digital converter, and a computer with acquisition, spreadsheet, and graphical analysis software, are being used by students in a vertebrate physiology laboratory course to improve their competence in handling data, and engage them d) the scientific process. In addition, this equipment is being used by senior student researchers to investigate synaptic transmission in the Xenopus lateral line. These improvements in instrumentation are not only enhancing the upper-divisional course work at Xavier, but serving to strengthen the entire Biology program.